Plasma Analysis for the Earth's Bow Shock and Magnetosheath

This project would seek improved estimates of the solar wind polytropic index at the bow shock to be obtained by analyzing shock crossing data with improved MHD-based models for the bow shock. The project will additionally seek analytic solutions for the magnetosheath thickness and related parameters and determine their dependence on solar wind and magnetopause parameters. The results of these investigations will be compared with MHD simulations with the goal to improve the understanding of the large scale physics of the magnetosheath and the size and shape of the bow shock.